Travel Support for U.S. Scientist Partcipation in the 6th Scientific Assembly of the Int'l. Assoc. of Geomagnetism andAeronomy in Exeter, U.K.

The American Geophysical Union (AGU) administers a block grant program to support travel of US scientists in the 6th scientific assembly of the International Association of Geomagnetism and Aeronomy (IAGA). This Meeting will be held in Exter, UK, July 24, to Aug 4, 1989. The IAGA is international forum when scientists from many countries meet to discuss current problems in Aeronomy and Geomagnetism. NSF has supported travel to there meetings in the past through AGU. The block grant has been a successful program and well received by the US scientific community. Many US scientists from various subfields: solar-terrestrial, magnetospheric physics, aeronomy, earth sciences an atmospheric science (including polar programs) will persuit their research results to international community.